Mathematical Sciences: Nonlinear Partial Differential Equations and Models for Phase Change

This research concerns mathematical questions relating to models for phase change, especially phase separation. The existing models for phase separation are the Cahn-Hilliard equation (for a binary alloy) and the phase field equations (for a pure material with latent heat). The mathematical issues relate to the initial phase separation events and the subsequent coarsening of the material. Also, the research will include a study of the connections between different stationary states and, in one case, the motion of internal layers, characteristic of the later stages of coarsening. The research is in the general area of applied mathematics and in the specific area mathematical models for the dynamics of phase changes. The project supports a group effort of four researchers.